Integration of Fourier Transforms Nuclear Magnetic ResonanceSpectroscopy into the Undergraduate Chemistry Curriculum

This project is acquiring of a high field Fourier transform multinuclear NMR spectrometer for use as part of the overall improvement of the undergraduate curriculum. The improvement plan is integrating the theory and applications of multinuclear FT-NMR into ten regularly scheduled laboratory courses and the undergraduate student research program. The spectrometer provides students and faculty with the capability to perform pulse techniques which furnish structure information that are routine by today's standards. Courses which focus on the technical aspects of FT methods and the applications of both C13 and H1 NMR methods for quantitative measurements are also being enhanced by the spectrometer. Experiments which target the studies of reaction mechanisms, stereospecific reactions, thermodynamic properties, equilibrium and substituent constants, and enzyme kinetics are being introduced into physical, organic, analytical, and biochemistry laboratories and into two Instrumental Analysis courses. The enhanced capability of high resolution NMR pulse techniques also improves both the quality and quantity of undergraduate student research which is a requirement for all students seeking a major in chemistry. Integration of high resolution FT-NMR into the chemistry curriculum enhances the undergraduate experience with modern instrumentation and reinforces student understanding of how modern chemistry research is conducted. The Bruker DPX-250 was chosen for its cost effectiveness, versatility, and ease of use in providing a number of applications. The AVANCE DPX system incorporates digital signal and filtering techniques which provide ultra-high stability and sensitivity required for 3-D and inverse experiments. All advanced NMR experiments and techniques, from ID and DEPT to inverse, 2D or gradient experiments are performed automatically. Experimental results are automatically processed and plotted. The Ethernet interface allows for transfer of data via a network to individual workstations or PCs. Most importantly, the AVANCE DPX is an ideal teaching tool for illustrating the fundamental concepts of NMR and illustrating how it is used to solve molecular structure problems.